Publication of the Proceedings for the Summer School of the U. S. Particle Accelerator School; Batavia, Illinois; July 20 - August l4, l987 (Physics)

The 1987 Summer School of the U.S. Particle Accelerator School is being organized in association with Fermi National Accelerator Laboratory (Fermilab) and the University of Chicago and will be held at Fermilab July 20 - August 14, 1987. It will be the sixth in a series of national summer schools: the first and fourth being held at Fermilab in 1981 and 1984, the second and fifth at SLAC in 1982 and 1985, and the third in 1983 at BNL/SUNY. This year the School will initiate a four-week format. The purpose of the School is to attract scientists and students to work in accelerator physics. The first two weeks, Session I, will have a university style format and consist of three parallel courses on accelerator physics. By agreement with the University of Chicago, students may earn university credit (1 semester equivalent per course) by successfully completing up to two of these courses. The last two weeks, Session II, will have lectures, seminars and tutorials in a symposium format, and will include an intensive series of courses on the physics and technology of particle accelerators. Approximately 300 participants are expected to attend. This action will provide funds for the preparation and publication of the proceedings.